Potential for Extracellular Degradation of Glycoprotein Oligosaccharides by Glycosidases

9222916 Goochee This project is on research to investigate the activities of sialidases in Chinese Hamster Ovary (CHO) cell cultures relative to possible extracellular modification of sugar groups on secreted glycoprotiens expressed during the culturing process. Glycopropteins have many important pharmaceutical applications, for example, for the clinical treatment of chronic renal failure, cancer, heart disease, enzymatic deficiencies, blood clotting diseases, and cystic fibrosis. The presence or absence of sialic acid in glycoprotein oligosaccharides strongly affects properties such as solubility, specific activity, and circulatory half - life in vivo. This project contains a program to determine the bioprocess conditions that minimize or maximize the enzymatic hydrolysis of sialic acid from glycoprotein oligosaccharides. The properties of sialidases from several other important mammalian cell lines will also be explored.